Collaborative Research: Hydrographic Support for WHP Line 19N

9401827 Swift In this project, the PI will provide hydrographic support for WOCE (World Ocean Circulation Experiment) Hydrographic Program (WHP) sections I9N (95deg East), I7N (Arabian Sea), and I3 (transIndian Ocean at 20deg S), as part of the US WOCE Indian Ocean Expedition (IOE). The PI will also provide logistics support (shipping and travel) for other investigators as needed. This work is the primary data collection activity for the US WOCE IOE.